SGER: Exploratory Investigation of Radar Backscatter Properties of Red Sprites and Midlatitude Spread F

The purpose of this project is to investigate the possibility of radar detection of atmospheric changes resulting from red sprites. Sprites are flashes of light extending upward from cloud tops into the ionosphere. They occur in association with large thunderstorm systems. Current theories suggest that sprites are produced by large electric fields in the upper atmosphere that accelerate charged particles. These particles produce ionization that may be detectable by ground-based radar systems. The investigators will deploy a portable radar in Colorado so that the measurements can be made in coordination with optical observations as part of a campaign to be conducted in the summer of 1995. They also intend to make measurements of midlatitude spread F echoes, a recently discovered phenomenon that only occurs during periods of low solar activity. These echoes were previously detected by a much larger radar in Japan, but it is possible that they may also be detectable the portable radar to be used in this experiment. If successful, these experiments will lead to the development of new diagnostic techniques for these two atmospheric phenomena.***